Vertically Integrated Engineering Design for Combined Research and Curriculum Development

This award provides funding to Iowa State University, under the direction of Dr. David Jiles, for the support of a Combined Research-Curriculum Development project entitled, " Vertically Integrated Engineering Design for Combined Research and Curriculum Development." This project focuses on a combination of design experience and research to meet the educational needs of future generations of engineers in the most efficient manner possible and without increasing the number of course credits needed for graduation. The mechanism devised for achieving this is termed "vertically integrated design," which will provide a broader design experience for engineering students. This approach will engage students throughout their undergraduate career, beginning with sophomores, using state-of-the-art engineering simulators that illustrate the various critical stages in the life cycle of manufactured components. The specific field of research involved is nondestructive evaluation, which combines recent advances in life-cycle engineering, modeling and strong industrial interactions through the NSF Industry/University Cooperative Research Center for Nondestructive Evaluation. Formal courses on engineering practice and design will be taught in parallel with the experimental research project, which will involve sophomores, juniors and seniors working together.